Ultracold Atoms for Probing Fundamental Physics

Theoretical and computation research into the collision of ultra-cold atoms is undertaken to better understand the long-range forces governing these collisions. The cross sections are required to better understand and model the dynamics of Bose-Einstein condensates.